An Early Research Experience for Chemistry Majors

The Department of Chemistry has recently completed an extensive review and revision of the curriculum. A central and novel feature of the new curriculum is fourth-semester course called Synthesis that supports a number of new curriculum goals, including independence, involvement, and early experiences in research. To be fully successful, Synthesis should be taught in an environment where there is easy access to the tools required for purification and characterization of compounds and further structural studies, The equipment obtained through this project. allows the department to fully realize this goal. A graphics package updated the IBM nmr spectrometer, dramatically enhancing accessibility for less experienced operators. A preparative, radically accelerated chromatograph affords separations that are rapid enough for routine use. Finally, computers and software allow in-lab molecular mechanics modeling routinely during the course of more traditional lab work. With these and other available tools and labs that are designed around chemistry that is conceptually accessible at the second-year -level, student are able to formulate their own questions and propose and execute experiments to explore those questions. The institution contributed to this project in an amount equal to the NSF funds.